A Montaged Confocal Image Database System

9419233 Carlis Many of the observations made by brain scientists, from molecular physiology to behavior, can only be understood when they are placed within the context of the brain's anatomical structure. With this award, a group of computer scientists and neurobiologists, headed by Dr. John Carlis, will design a prototype architecture for storing high resolution images of brain structure. These images will be organized (1) so that they can be viewed globally, but also so that the operator can zoom in on very fine details, and (2) they will be organized as network accessible files so that they can be shared over the internet. This work will advance the emerging field of bioinformatics and will improve the ways in which scientists store, share, and analyze experimental data about the brain.